Renovation of Neuroengineering Research Laboratories

9313526 Buchsbaum This award allows the University of Pennsylvania to renovate and modernize research space in order to enhance it's Neuroengineering Research Laboratories. By modernizing these facilities, this university will be able to integrate research and training in engineering technology with the study of brain function. While emphasizing vision, the integration of psychology, physiology, computer science and engineering technology can lead to tremendous advances in research in such areas as machine vision at this institution. The research is lead by 15 highly regarded faculty, while 4 postdoctoral fellows, 43 graduate students and 42 undergraduate students will take advantage of the renovated facility. The University of Pennsylvania has a unique environment for this activity since it has an NSF Science and Technology Center in Cognitive Science along with the department of neuroengineering and an Institute in Neurological Sciences. The Neuroengineering Research Laboratories will provide a central facility for collaborative research, and will offer the capability for advanced training in state-of-the-art simulation methods in neural networks. Finally, this department interacts with Lincoln University (an HBCU) in order to include more minority participation in the engineering activities at the University of Pennsylvania. ***